Data Abstraction and Object-Oriented Programming Techniques for Management of Mechanical CAD Data

This research will explore the applicability of data-abstraction and object-oriented programming techniques to the management of mechanical design data (the "mechanical-CAD database problem"). Data abstraction and object-oriented programming have been applied in a limited fashion to computer-graphic and electronic-CAD databases, but have not been explored systematically in mechanical domains. Data abstraction principles should provide techniques for defining complex, hierarchical data structures with embedded semantic information; object-oriented programming principles should provide techniques for manipulating such structures in ways that use and propagate (by inheritance, through operators) semantic properites. The research will be both theoretical and experimental in character, and should yield a design for an experimental data management system for use in mechanical CAD systems.